Research Experience for Undergraduates: Emerging Technologies in Electrical Engineering

Electrical, Computer, and Systems Engineering at Boston University is committed to providing the education that engineers will need to understand and contribute to technological change in the twenty- first century. The mission is the training of the country's future engineering leaders and the expansion of the frontiers of modern technology. This REU expands beyond the "Freshman Research Opportunity Program" (FROP). Special attention will be given to recruiting women and minority applicants. By capturing the interest of undergraduates in research at an early stage, the REU program hopes to deflect them into the PhD bound research track, further enhancing the national pool of PhD level scientists and engineers.